To attend Fifth International Conference on Polymers in Brighton, England, September 21-24, 1987.

This project is a travel award for the researcher to participate in the Fifth International Conference on Polymers in Concrete to be held at Brighton, England, September 21-24, 1987. The researcher will participate in panel discussions and was the co-author of a paper being presented by Dr. Cady of Pennsylvania State University.